Collaborative Simulation for Education and Research

This USC-ISI award supports work on a Collaborative Simulation for Education and Research (CONSER) project. The CONSER system involves development of infrastructure that addresses two purposes: (a) support for research activities in the development and evaluation of networking protocols, and (b) teaching in the areas of networking protocols and networking concepts. Based on a collaborative simulation environment, CONSER is intended to aid understanding of protocol behavior in complex operational environments, over a range of traffic conditions, and on a variety of media. The system will involve simulation and visualization support intended to aid researcher and student understanding, thus
providing benefits in both research and teaching settings. Based on ns and nam, the work is expected to be well received by the research community and industry.